Coastal Effects of Tsunamis (Seismic Sea Waves)

This research is an experimental investigation of the fundamental dynamics of tsunamis (seismic sea waves) as they reach a shoreline, as well as the ensuing run-up and drawdown processes. It is a continuation of the research initiation award CES-8503436. The goal is to develop a better understanding of the mechanisms of destructive tsunami effects in a coastal zone. A unique laser-flow-visualization laboratory facility developed under the initiation award is used for generating and studying tsunamis formed as bores in the nearshore region. Observations of viscous and surface-tension effects provide insight into scale effects associated with physical models. Impulse forces associated with the tsunami transition from a bore to the run-up mode are being investigated through direct force measurements, together with the laser-induced flow-visualization technique. Combining these observations with available field observations, the emphasis of the experimental research is to guide theoretical efforts toward a more realistic modeling of the mechanics of destructive tsunami action in coastal areas.